Transition in Eastern Europe

The purpose of this project is to develop an analytical framework for analyzing and better understanding the transition of the centrally planed Eastern Europe economies to a market oriented system. The adjustment process has been going on now for three years, and there is a better understanding of the dynamics of change in Eastern Europe. While many state firms have gone out of business altogether, others are struggling to remain in operation often clamoring for state subsidies to keep them afloat. At this point it appears that most state firms have not been able to begin the kind of restructuring required to make them efficient and productive enterprises. The proximate cause of this has been lack of progress on meaningful privatization. As a result unemployment throughout the region has increased dramatically because privatization has not proceeded quickly enough to offset declines in public the sector industries. This project is important because it will develop a much needed analytical framework for assessing policy options for attaining needed reform.